Contractile Force of Diaphragmatic Muscles

The diaphragm is the most important respiratory muscle. The central tendon deforms in accordance with the contraction and relaxation of diaphragmatic muscles. This proposal will study the contractile forces using the central tendon as a strain gauge. Their hypothesis is that with properly characterized strain histories and measured mechanical properties of the central tendon, they will be able to form a model of the respiratory cycle. A working model is necessary to adapt anesthesia and facilitated breathing instrumentation to the respiratory system.